Highly Reduced Complexes: C-C Bond Forming Reactions of Arenes Coordinated to Manganese (-I)

Dr. N. John Cooper, Department of Chemistry, University of Pittsburgh, is supported by the Inorganic, Bioinorganic, and Organometallic Program of the Chemistry Division for studies of highly reduced complexes of manganese. The primary objective of this project is to use the unusual reactivity of a tetrahapto Mn(-I) benzene complex to develop new reactions of arenes coordinated to transition metals. The electrophilicity of cationic reagents, such as the hexahapto Mn(I) complex, iminium salts, and cationic cycloheptatrienyl complexes, will be used to drive additions to the Mn(-I) complex. These additions are expected to produce new biaryl ligands, amino alkyl substituted ligands, and 6:4:7 fused ring systems. Fundamental studies of the mechanism and the scope of these additions will be explored using ketenes, and reactions with keteniminium salts will be tested to force entry into (2+2) additions which lead to fusion of a 4-membered carbon ring on to the benzene nucleus. Strategies for the removal of the diene ligands from the metal center will also be investigated. The reactions proposed share several characeristics which are likely to make them of strategic value in organic synthesis; all involve formation of new C-C bonds to the benzene nucleus, many introduce useful functional groups for synthesis, all are likely to be stereospecific, and most should be accessible with other substituents on the arene nucleus. Benzene is one of the most central molecules in chemistry, and the broader significance of the proposed ressarch is that it will lead to new reactions of benzene which cannot be achieved through traditional organic methods. These studies will shed new light on carbon-carbon bond forming reactions to benzene, and the results are expected to be of general utility to the field of organic synthesis.